Dynamics of Nonlinear Waves in Optical Systems

This research focuses on the study of nonlinear waves and their
applications in nonlinear optical systems. Using a combination
of modern perturbation methods, rigorous analysis, and scientific
computation, a wide variety of optical models will be explored
and developed. In conjunction with significant modeling
efforts, the mathematical objectives will be to further develop and
extend the methods utilized for quantifying and understanding the wave
dynamics of nonlinear, dispersive partial differential equations
which arise in the study of optical soliton transmission, modelocked
fiber lasers, and optical fiber network devices and applications.
In particular, a variety of analytic methods will be pursued with the goal
of reducing the governing equations in Hamiltonian and integrable systems
to more readily handled systems of partial differential equation that still
retain the fundamental characteristics of the full governing equations.
The resulting dynamics will be completely classified with particular attention
given to parameter regimes for which periodic or chaotic dynamics may
arise in the system. Comparison between the reduced models, numerical
simulations of the governing equations, and experiments will be performed
whenever possible.

The goal of this research is to identify, classify, and model physical systems
of current interest in the optics community. Particular interest will be given
to applications of greatest interest to industrial partners at Bell
Laboratories (Lucent Technologies), Tyco Submarine Systems International,
the 3M corporation, Hughes Research Labs, and Honeywell Inc. With the
increased importance of optical fiber technology, fiber optic
applications have broadened from mere high data-rate communications
(soliton transmission) to inexpensive optical fiber laser sources,
local area network design and applications, and all-optical network
devices and components. The proposal covers all areas of current research
efforts in these areas. In particular, the close working relations
with industrial partners ensures timely research in the most important
areas of application. And with the readily available experimental
studies provided by these industrial partners, accurate mathematical models
can be constructed and developed to capture the fundamental aspects
of each optical system: thus providing the potential for the mathematical
models to have a significant impact on design and implementation of
realistic and physically realizable systems.